Doctoral Dissertation Research in Sociology

This dissertation will investigate trends in occupational sex segregation and sex inequality in the United States between 1940 and 1980 and across U.S. metropolitan areas in 1960, 1970, and 1980. In addition, the study will assess segregation across work-experience cohorts between 1971 and 1977. Data are from the U.S. Census Public Use Micro Data Sets. Results of this study will contribute to our understanding of involuntary occupational sex segregation and as a consequence contribute to solutions of current social problems resulting from these, such as low income families with single-earner female heads.